How Should Experts Work with Database and Models

This proposal examines how to combine the results of database models with the intuitive predictions of experts. The project requests funding for the development of a theoretical model and for two field site studies, using buyers in retail chains, that will compare different methods of combining models and experts' forecasts. These methods are based both on mechanical (rule-based) combinations and on various types of interactive procedures that allow for the on-line adjustment of model forecasts by experts. The topic is inherently complex, due to difficulties associated with developing an operational definition of intuition and the significance of situational factors in understanding how to do a better job of extracting knowledge from experts. However, the proposed studies are well defined and relate clearly to earlier work in the field. Moreover, the utility of the project is considered to be very high: the use of large databases by managers, and decision models calibrated on them, continues to grow but there is very little theoretical basis for providing guidance on how to combine the results of these models with experts' intuitions. Thus, the contribution of this project to forecasting practice and to the theory of knowledge-base construction could be considerable.